Introduction of FT-NMR in the Chemistry Curriculum

Incorporation of a 200 MHz C/H NMR spectrometer will upgrade the curriculum by allowing our students to experience powerful means of structure elucidation, and it will introduce computer- controlled instrumentation. The project will strengthen the curriculum at several levels. The second-year organic chemistry sequence will be augmented to allow earlier and more frequent use of NMR in compound identification and structure analysis. The course "Introduction to NMR", part of our research introduction sequence "Advanced Opportunities in Chemistry", will be expanded to give more students early technical skills and encouragement to pursue later undergraduate research. Upper level courses will use FT-NMR as an integral part of the problem-solving. The undergraduate research program will be emphasized and greatly strengthened by the acquisition. The grantee will match the NSF award from non-Federal sources.